The Computation of Direction Selectivity in the Retina

Visual detection of motion occurs via neurons that selectively respond to the direction of movement in the visual field. Cells in the retinal ganglia give ON/OFF responses when moving objects cross their receptive fields in appropriate directions. This implies that there are neural circuits that inhibit the responses of these cells, and it is those circuits that are the object of investigation in this project. The study addresses four major questions: 1. Are these cells essential to direction selectivity or do they simply function in determining velocity and orientation? 2. How does the inhibition interact with excitation in the retina? 3. How does the inhibition relate to the cells' tuning to velocity and direction selectivity? 4. How dependent is the inhibition on the contrast of the object whose motion is being perceived? The methods employed include electrophysiology, pharmacology and immunohistochemistry, with computational theoretical analysis of the data. The work is significant for a number of reasons. It includes analysis of general mechanisms that are probably fundamental to the function of the brain. It will also demonstrate the limitations of early motion measurements, perhaps setting constraints on what may be expected of motion perception. Finally, it includes the development of new experimental as well as theoretical tools that will be applicable to studies of motion perception mechanisms in higher centers of the brain. *** //